Expedited Award for Novel Research: Preliminary Study of Knowledge-Based Creative Design

The potential for creative design occurs when knowledge from outside the specific design domain is applied to a specific problem. The project includes a study of a model for reasoning about the creative design processes.